"Seismic Response Evaluation of Precast Structural Systems for Various Seismic Zones and Site Characteristics" (PRESSS)

9307880 Pessiki The objectives of the project are: (l) to develop analytical models for the hysteretic behavior of precast frames; (2) to develop analytical models for the hysteretic behavior of precast walls; (3) to perform system response evaluation studies of precast structures for different seismic zones with different site characteristics; (4) to develop preliminary design recommendations for precast seismic structural systems. To achieve these objectives, the proposed project will design and analyze a set of prototype structures for ground motions representatives of various seismic zones and site characteristics in the U.S. The prototype buildings will be frame and frame wall structures that utilize ductile connection construction. The project will assess the seismic response of the prototype structures and based on this study preliminary design recommendations will be made. ***